An Integrated Modeling Environment for Urban Change Research

***9817761
Clarke
This Urban Research Initiative (URI) project will develop an integrated
modeling environment (IME) for the cross-disciplinary study of a wide
range of questions pertaining to urban change. At the core of IME is a
model of evolving urban spatial structure already successfully applied
to the Baltimore/Washington and San Francisco metropolitan areas. This
research drastically extends the capabilities of the previous model by
allowing it to be combined with a variety of other models of natural
and social processes affecting the urban realm, by strengthening its
theoretical and technical base and analytical utility, and by
integrating it within a portable user-friendly environment for the
investigation of a variety of urban research and policy questions.

IME consists of two levels. At the IME-1 level the focus is on the
changing urban spatial structure, as in the earlier model, but now a
much more versatile and sophisticated range of urban growth models can
be built through the linkage with models of other natural and human
urban subsystems. The IME-2 level is for investigating more general,
not directly geographic urban research and policy questions, where
urban spatial structure is one of several key factors. The research
plan consists of four interrelated tasks. Task One develops the
theoretical and technical framework for the IME. Task Two demonstrates
and tests the validity of the approach at the IME-1 level through
modeling and analyzing the growth patterns of selected metropolitan
regions. Task Three demonstrates and tests the validity of the
approach at the IME-2 level with a study seeking to predict land use
intensity and population distribution through coupling of several
different models of physical and human processes, including a model of
urban spatial structure. Task Four focuses on the computational
implementation and dissemination of the IME. Dissemination plans
include the development of two (one undergraduate and one graduate)
Web-based courses on urban change.
***

The project is multi-institutional, linking together the University of
California Santa Barbara and two other major federally funded projects:
the Urban Retrospectives/Urban Dynamics initiative at the United
States Geological Survey will provide the data for the metropolitan
areas and assist with the more routine modeling work. The Urban
Security initiative at the Los Alamos National Laboratory will
contribute advanced expertise on the theoretical and technical aspects
of complex dynamic models, and on the coupling of physical science
models with urban models. It will also provide access to
supercomputing resources where needed.